RIA: Synthesis, Experimental Test and Constitutive Modelling of Elastomeric Networks Having Statistically Well-Defined Structures and Defect Structures

9410564 Arruda This Research Initiation Proposal is made to investigate the constitutive response, including birefringence, of elastomeric networks under large deformations. Moreover the contributions of defects to the stress and bitefringence response will be accounted for in the model. Polydimethlysiloxane (PDMS) networks will be synthesized to experimentally investigate the responses of network elastomers. These experiments will systematically examine the effect of variation in elastomer chain network structure on the responses. (**